Scalable Authorization in Distributed Systems

Proposal Number: CCR-9901700

PI: Ravi Sandhu

Project-summary-paragraph

Authorization must be a cornerstone of effective security in
distributed computing. Moreover, in large-scale systems authorization
must itself be scalable. This project will conduct a holistic
investigation by looking concurrently and synergistically at
architecture, mechanisms, and models for scalable authorization.
These three aspects are intertwined and mutually dependent, so
decisions made in one impact the choices in others. Yet they can be
profitably separated for scientific study. The project will develop
and refine a set of architectures for enforcement and administration,
and analyze their relative advantages and disadvantages. It will
develop a systematic analysis of techniques for binding identity and
authorization information, and the pros and cons of mechanisms based
on different binding means. The third prong of the project will
develop decentralized models for management of authorizations. This
project will undertake theoretical and conceptual basic research
augmented by selected proof-of-concept experiments to validate the
theory.